SGER: Origins and Dynamics for the Variety of Broadband Electrostatic Waves in Earth's Magnetotail

This project will investigate the phenomenon of broadband electrostatic noise (BEN) that has been observed in the Earth's magnetotail. The project will examine a recent model for the production of BEN which involves both trapped solitary waves and an untrapped, large region of non-solitary waves. It will focus on developing two aspects of the model: (1) the non-linear theory of trapped solitary waves in a general magnetized plasma, and (2) the evolution of non-solitary waves associated with beam-plasma instabilities in inhomogeneous plasmas.